Phenyl-Acetylene Scaffolding: Experimental, Theoretical, and Materials Studies of New Molecular Systems

This project will continue work on the preparation and study of novel dehydrobenzoannulene (DBA) and tetrakis(arylethynyl)benzene (TAEB) topologies to answer fundamental scientific questions as well as to explore the materials properties of the resulting molecules. Specific areas of study include: (1) preparation of phenyl-acetylene polymeric networks based on DBAs, (2) functionalization of DBAs and TAEBs, and (3) determination of the nonlinear optical properties of the DBAs/TAEBs as they represent novel 2-dimensional nonlinear optical chromophores.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Professor Michael Haley of the Department of Chemistry at University of Oregon. Professor Haley's research efforts revolve around the development of facile synthetic methods for the assembly of functional molecules comprised of benzene and acetylene building blocks. Studies on the materials properties of the resulting compounds will lead (ultimately) to the rational design and use of this family of structures in beneficial technologies such as organic light emitting diodes.